Guiding Readiness and Opportunities in the Workforce for STEM

This project will contribute to the national need for well-educated scientists, mathematicians, engineers, and technicians by supporting the retention and graduation of high-achieving, low-income students with demonstrated financial need at Westminster College of Salt Lake City. A total of 29 scholars pursuing Bachelor of Science degrees in Biology, Chemistry, Computer Science, Environmental Studies, Mathematics, Neuroscience, and Physics will be awarded scholarships of up to $15,000 annually for up to five years. Scholars will receive faculty and alumni mentoring, and the project will build strong scholar cohorts through a summer bridge program, a STEM seminar series, and a STEM-specific career exploration course. Additional activities for scholars include undergraduate research, internships, data science courses, and certificate programs.

The overall goal of this Track 2 Scholarships in STEM project is to increase STEM degree completion of academically talented, low-income undergraduates with demonstrated financial need. There is a significant national need to grow the STEM workforce and nurture key talent that will ensure economic competitiveness and provide domestic leadership across critical sectors. This project directly speaks to this need by supporting STEM student success, which will strengthen the workforce in computer science, data science, and other key areas of need. The project will be assessed by experienced evaluators who will investigate how specific interventions contribute to retention and graduation rates and what factors influence students' decision to enroll in computer science and data science courses. The data generated will contribute to the knowledge base regarding effective strategies to support talented, low-income students in STEM. This project is funded by NSF's Scholarships in Science, Technology, Engineering, and Mathematics program, which seeks to increase the number of academically talented, low-income students with demonstrated financial need who earn degrees in STEM fields. It also aims to improve the education of future STEM workers, and to generate knowledge about academic success, retention, transfer, graduation, and academic/career pathways of low-income students.